Investigation of Solar Flares with Images of Their Microwave - Emitting Sources (Atmospheric Science)

The dynamic evolution of microwave-emitting sources in solar flares will be investigated using spatially, spectrally, and temporally resolved observations obtained with the Owens Valley frequency-agile interferometer. Measured source areas and spectral parameters will be used to make quantitative tests of solar-flare models. The results of this investigation will advance our understanding of particle acceleration and particle interactions in ways that have not been possible without imaging on the spectral and temporal scales commensurate with the impulsive component of solar flames. Interactive activities include helping to develop connections to the existing network of women in physics and astronomy, teaching a section of the freshman physics course during the winter quarter to encourage contacts with undergraduate students, and presenting guest lectures and seminars in high-energy solar physics. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.